Integral Affine Structures and Calabi-Yau Metric Degenerations

Abstract

Award: DMS-0405939
Principal Investigator: Ilia Zharkov

The proposed research lies in the subject of mirror symmetry, of
which there are several mathematical interpretations. The
investigator will address a possible link between two of them --
the homological mirror symmetry of Kontsevich and the duality of
Strominger-Yau-Zaslow torus fibrations -- by studying the
limiting metric behavior of maximally degenerating families of
Calabi-Yau manifolds. The main objective of this research is to
prove the metric collapse conjecture for the toric Calabi-Yau
families. The key ingredient here is to understand the behavior
at the discriminant. Another direction is to study the Kaehler
affine structures on the limiting space. Finally, the tropical
geometry approach is proposed for the limiting counting of
holomorphic curves and understanding the degeneration of the
Fukaya side of the homological mirror symmetry.

In recent years there has been a remarkable renaissance in the
interaction between mathematics and physics. After a long period
during which mathematicians and physicists pursued seemingly
independent paths, their interests have now converged in a
striking manner. Deep connections have been established between
quantum field theory and string theory on one side and topology,
algebraic and differential geometry on the other. Mirror
symmetry is considered by many to be the mostly responsible for
bridging the gap between the two fields created in previous
decades. On a broader scale, as physicists nowadays believe that
a Calabi-Yau 3-fold together with 3+1 Minkowski space constitute
the space-time of 10-dimensional string theory, a better
understanding of these manifolds will help to uncover mysteries
of the Universe.